Dissertation Research: Periwinkle Grazing On and Control of Spartina Alterniflora.

Project Summary
Many aquatic communities have been shown to be under top-down control, while most systems
dominated by vascular plants are assumed to be controlled by bottom-up forces. For nearly
50 years, the prevailing paradigm in salt marsh ecology has been that bottom-up forces,
such as nutrient availability, are the primary determinants of marshgrass production. In
this proposal, we show that the standing crop of the dominant plant in western Atlantic
salt marshes is reduced wholesale and the substrate completely denuded when predators do
not suppress densities of the most common grazing invertebrate in southeast marshes, the
periwinkle Littoraria irrorata. Before these results can be generally accepted, however,
the apparent contradiction between our observations that Littoraria graze extensively on
live Spartina and the current paradigm which holds that Littoraria is the most important
detritivore in the marsh system must be resolved. To do this, we present a detailed
research plan to obtain a mechanistic understanding of the Littoraria - live Spartina
interaction. Results from this study will likely force us to reevaluate our current
understanding of marsh systems and add critical information to the ongoing debate as to
whether or not vascular plant communities are susceptible to run-away consumer effects.